Heeding the Call for Change: Models that Work

Case Studies of exemplary collegiate mathematics programs are being developed. These projects will be highlighted in a volume describing model programs that illustrate different aspects of the many recommendations calling for change and revitalization of undergraduate mathematics programs. The MAA's Committee on Undergraduate Programs in Mathematics is serving as an advisory committee for the project.